STTR Phase II: Electrochromic Devices Fabricated from Self-Assembled Polyelectrolytes for Flat Panel Displays

This Small Business Technology Transfer (STTR) Phase II project will continue development of a new electrochromic device based on self-assembly of organic nanomaterials. Phase I used these materials to create laboratory scale devices. Precise control of the material composition at the nanometer (nm) scale, combined with the thin layers deposited (40 nm thick), allowed switching speeds of 25-50 milliseconds for the first time, which are nearly fast enough for display applications. Further, it was found that these materials, fabricated in the solid state, could be switched by applying only 1.0 volt. Phase II will focus on optimizing device performance, developing tri-state and multi-color devices, and evaluating performance under environmental conditions necessary for commercial product development.

Markets for the technology are very large and range from automotive self-dimming rear-view mirrors to smart windows for residential and commercial buildings, smart glasses, and display products. Phase III is planned for manufacturing scale-up and will be conducted in an industrial partnership.